Undergraduate Mathematics Microcomputer Laboratory

This project will support the creation of a microcomputer laboratory for undergraduate mathematics at Columbia University. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." This laboratory will serve undergraduate students in both lower division (calculus, linear algebra, theory of equations with applications, and ordinary differential equations) and upper division (number theory, dynamical systems, and Fourier analysis) courses and will enable them to use state-of-the-art computer graphics and both numerical and symbolic computer software.